A Study of Coastal Richardson Numbers, and How They are Affected by Wind-Generated Internal Waves

In this project, the Principal Investigator will continue studies of internal waves in coastal regions, particularly their generation and instability. In the first task, current meter data will be analyzed to determine statistics of the distribution of Richardson Number, and relate it to turbulent dissipation. In the second task, a numerical model will be used to study the generation of internal waves by moving wind stress patterns.